NSF Minority Postdoctoral Research Fellowship for FY-1999

This action funds an NSF Minority Postdoctoral Research Fellowship for 1999.

The research and training plan is in the area of biophysics and is entitled "A new biological oxygen sensor from E. coli." A new oxygen-detection protein has been discovered in E. coli. One of its domains contains heme and is related to the oxygen-sensing domains of the rhizobial FixL. Another one of its domains is related to a family of DNA-binding proteins. These experiments are investigating the mechanism of oxygen sensing by this protein.